Software Watermarking, Obfuscation, and Tamper-Proofing for Software Protection

Christian Collberg

This research investigates four techniques for
the intellectual property protection of software:
watermarking, fingerprinting, obfuscation, and
tamper-proofing.

Watermarking and fingerprinting defend against
software piracy by embedding a copyright notice
or identification number into a program. This
asserts ownership and allows tracking of copyright violators.
Effective watermarks are unobtrusive, have high
data-rates, and are resilient to de-watermarking attacks.

Obfuscation defends against malicious
reverse engineering by transforming a program into
an equivalent one that is harder to analyze.
Effective obfuscating transformations are
semantics-preserving, have low computational
overhead, and are based on intractable problems
that prevent them from being undone.

Tamper-proofing causes a program to malfunction when it
detects that it has been modified. Tamper-proofing code
can be added to an application to protect a watermark
from being removed, to prevent a virus from being added,
or to ensure that the security-sensitive code of an
e-commerce application has not been altered.

The goal of this research is to implement many of
the currently known algorithms for software
protection and to construct benchmarks against
which these techniques can be evaluated. An additional
objective is to build theoretical models that help to gain
a deeper understanding of the limits of intellectual
property protection of software.